HPNC: High Performance Network Connections in Support of Low Temperature Astrophysics Studies and Other Collaborative Research

The proposal plans to connect ESU to the Abilene Network via KANREN and the Great Plains Network for the purposes of low temperature astrophysics research, geospatial analysis, and archeology at a brand new site just donated to ESU.